Studies in the Private Provision of Public Goods

This project studies the following three problems in the theory of public goods and public decision making: 1) the problem of inducing voters in a democracy to vote intelligently when information gathering is costly; 2) the analytics of rent-seeking by individuals and alliances; and 3) the economics of quality and diversity in the newspaper and television industry. The three lines of research share a common fundamental framework-- a formal model of a Nash equilibrium in which "public goods" are supplied voluntarily by individuals. The public goods in these three problems are respectively informed decision making by voters, military expenditures or lobbying activities in the case of rent seeking, and the "quality" of television programming or newspaper writing. Television signals are a standard example of a public good. Once a television signal is produced, any individual can watch the signal without imposing any costs on others. Newspaper technology is similar to that of television in that the amount of skill and effort required to produce stories of given length and quality is independent of the number of people who read the paper. The project determines the quality and price in the provision of newspapers and television and oligopolistic markets with and without exclusions and with the possibility of support by private advertising. Lobbying efforts of a special interest group are treated as contributions to the supply of a pure public good which benefits group members and harms members of competing groups. This project extends previous work on the competition of individual agents for rights to a prize, e.g., disputed land, trade restrictions, etc., to the case of alliances among groups which are held together non-coercively and whose interests may coincide only partially. The results should improve our understanding of political, economic, and military alliances. The staple problem in the theory of public choice is the "paradox of not voting." If voting is costly, then it has been argued that since there is negligible probability that one vote affects the outcome in a large electorate, it is irrational to vote in most elections. A possible explanation for the fact that so many people vote is that they enjoy "psychic benefits" from voting that are sufficiently large to overcome the cost of visiting the polls. But even if it is cheap to vote, it may not be so cheap to vote intelligently. This project rigorously studies information acquisition by voters and delineates plausible circumstances in which the accuracy of an election decreases with the size of the electorate. The project analyzes the choice of a small subset of the electorate to make certain kinds of social decisions, or government by jury, as a way of dealing with the problem of uninformed voting.